Second International Conference on Sodium/Calcium Exchange; Baltimore, Maryland; April 8-10, 1991

Intracellular free calcium ions act as second messengers in numerous physiological process in virtually all types of cells. One transport system that is involved with the regulation of cellular calcium is the sodium/calcium exchange system which is recognized as one of the fundamental mechanisms through which the intracellular ionic environment is maintained constant. Electrophysiological and molecular biological techniques have been used to study the sodium/calcium exchanger, providing more information on the properties and physiological roles of the exchanger in cells. A conference, under the auspices of the New York Academy of Sciences, has been planned to assemble investigators from various disciplines of science to discuss and share new information on the mechanisms that help regulate calcium in cells.